Planning for the 1st International Innovation Camp for Undergraduate Science and Engineering Students

0968870
Snyder

Dr. Mike Synder of iFESTsubmitted a planning visit proposal to request a planning trip to Beijing, Seoul and Tokyo to secure collaborative support for the first international innovation camp. The camp will be held at Rensselaer Polytechnic Institute (RPI).

The trip provides opportunities to plan this innovative collaborative activity and to establish a stronger infrastructure
for carrying out international exchange of undergraduate science and engineering students. The project is very
timely because the topic of entrepreneurship and innovation is a high priority in the U.S. as well as Japan, China
and Korea.